Magnetic Servo Levitation With Large Air Gaps

This research focuses on understanding the dynamics and control features of magnetic servo levitation, and on applying the ideas developed to robot mechanisms through theoretical and experimental studies. Previous research in this area has tended to develop magnetic servo levitation only within the framework of linear control theory. This work differs from the earlier work in that: 1) it treats explicitly the nonlinear and discrete time elements in the control system to exploit magnetic levitation with large air gaps, 2) it takes into consideration the dynamic motion of the stator which is normally assumed to be stationary, and 3) it includes an experimental research component to evaluate the control schemes for physical systems. The project is implemented in two stages, the first of which develops a servo control system for active magnetic levitation with large gaps, and the second of which demonstates servo levitation for practical robotic applications.